Rural Gateways: Fostering the Development of Rural Librarians as Informal Science Facilitators

Due to geographical isolation, rural communities are often underserved by the informal STEM (science, technology, engineering, and mathematics) education system. As part of its overall strategy to enhance learning in informal environments, the Advancing Informal STEM Learning (AISL) program funds innovative resources for use in a variety of settings including rural communities. Thus, this project will help to develop rural libraries and librarians into STEM learning centers and facilitators who will use community assets providing new horizons for youth on career choices and adults on an enhanced STEM knowledge base. Through online professional development exercises, the library staff will enhance their knowledge, enabling them to develop and support new STEM learning mechanisms in their communities.

In this project, 110 rural libraries will be chosen from applicants to obtain advanced knowledge of how to facilitate STEM learning. It is anticipated that the staff will change from being resource persons to facilitators of STEM knowledge transfer. The project is a collaboration between Dartmouth College, Dominican University, the Institute of Learning Innovation, Dawson, Media Group, and the Califa Group. The research questions address: a quantitative assessment of rural librarian's STEM efficacy and professional identity, and a determination of the efficacy and impact of multiple forms of professional development and learning tools on rural librarians' ability to participate in and facilitate informal STEM learning.